In Situ Structural and Chemical Characterization for Sol-GelSynthesis of Binary Glasses

The principal objective of this study is the elucidation of the relationships between nucleation and growth processes, on the one hand, and the fundamental chemical processes of hydrolysis and condensation, on the other hand, in the sol-gel production of binary glasses and ceramics. Understanding of this relationship is necessary to produce the desired homogeneity, bulk structures, and phase distributions in complex ceramics and glasses. A systematic study of the effects of formulation and processing of binary glasses via the sol-gel process is conducted. Several in situ techniques including infrared, Raman, and nuclear magnetic resonance spectroscopies are used to examine chemical kinetics, chemical transformations, and solid-state structures. The physical evolution of the sol nuclei and the gel structure are followed with dynamic light scattering and dynamic viscoelastic experiments of the evolving gel. The sol-gel process is a very important new technology for the production of high-performance glasses and ceramics. Applications of binary glasses and ceramics are found in many high-technology systems, including optical systems as fiber optics and light guides, chemical systems as catalysts and adsorbents, and electronic systems as dielectric and ferroelectric.